GEM: Correlative Ground-Based and Satellite Investigations of the Dynamics of the Nightside Auroral Region

This proposal will focus on the coordinated and integrated use of space-based (the ISTP constellation of satellites) and ground-based measurements of ionospheric emissions and electrodynamics to investigate substorm onset and evolution. The PI will continue to act as the GEM liaison to the NASA GGS program to foster collaboration and to note times for which the satellite and ground station locations are most optimum to address particular objectives. The work here is focused toward the Tail/Substorm Campaign of GEM.